Mathematical Sciences: Geo-Math Collaboration: Statistical Analysis of Varve Records

This award supports the cross-disciplinary efforts and the development of research collaboration involving quantitative modelling in the geosciences. In particular this research team of a statistician and a geologist will focus on the development of bivariate time series methodology suitable for the analysis of varve records for the purpose of dating.